U.S.-France (INRIA) Cooperative Research: Impact of Parallelism on the Solution of the Quadratic Assignment Problem

9900376
Guignard-Spielberg

This three-year US-France cooperative research award in operations research and production systems involves Monique Guignard-Spielberg and Peter Hahn of the University of Pennsylvania and Catherine Roucairol of the French National Institute for Research in Computer Science and Applied Mathematics (INRIA) at Rocquencourt and the University of Versailles. The researchers propose to study the impact of parallel processing on the quadratic assignment problem. This, the most difficult combinatorial optimization problem, involves more than 625 variables. Its study is important for improving computational techniques used in modeling, design and optimization of man-made systems.

The US investigators bring to this collaboration expertise in quadratic assignment problems. This is complemented by the French group's expertise in parallelization of branch and bound algorithms. The research will contribute to understanding of the inherent difficulties in quadratic assignment problems, their solutions, as well as parallel solutions of difficult combinatorial optimization problems.